Workshop on n-Categories: Foundations and Applications

Abstract

Award: DMS-0354538
Principal Investigator: J. Peter May and John C. Baez

The 2004 Summer Program of the Institute for Mathematics and its
Applications is on "n-Categories: Foundations and Applications," to be
held in Minneapolis, Minnesota at the Institute's facilities at the
University of Minnesota - Twin Cities. This award provides
participant support to augment the summer program's membership and to
make it possible for a group of workshop participants to join the lead
organizer and his students in a post-workshop working session at the
University of Chicago. The proposal describes the emerging theory of
n-categories as an area of international attention but of relatively
little presence in the U.S. The Institute's summer program and the
subsequent working session particularly aim to expose U.S. students
and junior researchers to the variety of ideas on n-categories being
pursued internationally. The post-workshop working group is an
attempt to focus heightened energies resulting from the workshop onto
problems of greatest promise, as identified during the workshop, and
is an innovation whose progress will be watched with interest.

The mathematical idea of a "category" is a versatile notion defined in
the mid-20th century to encapsulate the common features of a large
variety of mathematical objects. Although abstract, the ideas of
category theory are widely useful because they facilitate knowledge
transfer from one domain to another, for example, from algebra to
theoretical computer science. At the end of the 20th century several
complicated notions of "n-category" had come into play to meet the
needs of several areas of algebra, geometry, and physical theory, but
we do not have a definition yet of "n-category" that is as broadly
applicable as the original idea. The expository and research work of
the leaders of this summer program aims to achieve that missing
synthesis.